Los Angeles Area Community-Based Informal Science Education (LAA-CBISE) Project

9901962
COBB

The California State University, Los Angeles (CSLA) ACCESS Center [consortium] requests $216,949 to pilot a collaborative with the Los Angeles County Department of Community and Senior Services Community Centers and several community-based organizations to provide informal science experiences to underserved 11-14 years old youth and their families. The pilot will engage families in hands-on science activities, participate in community-based science clubs, and provide opportunities for leadership roles by enhancing their interest and knowledge in science, mathematics and technology.

California State University Los Angeles (CSLA) School of Natural and Social Sciences, Charter School of Education, School of Health and Human Services' Social Work Department, and ACCESS Center's partners for this pilot project include he following organizations:

Girls, Incorporated, of Los Angeles (Girls, Inc)
Con Los Padres
Grandma's House
Los Angeles Unified Districts Division of Adult and Career Education
The NASA Jet Propulsion Laboratory (JPL)
The California Science Center